A Pacific OBSIP Facility

This project provides for the participation of Scripps Institution of Oceanography as part of the national Ocean-Bottom Instrument Pool. This Pool will provide ocean-bottom seismometers and ocean-bottom hydrophones to the academic community.